CPS: Small: Neuro-Symbolic Learning and Control with High-Level Knowledge Inference

The use of artificial intelligence in cyber-physical systems is limited by challenges such as data availability, task environment complexity, and the need for expressive and interpretable high-level knowledge representations. To address these challenges, this project aims to develop a set of neuro-symbolic learning and control tools by integrating machine learning, control theory, and formal methods. The results are expected to find application across cyber-physical systems such as robotic systems, autonomous systems, and networked cyber-physical systems. Validation in a testbed environments should facilitate safe deployments in real-world physical environments with provable guarantees and robustness against potential adversaries.

The research tasks mainly focus on improving the data efficiency, interpretability, scalability, and resiliency of the neuro-symbolic approaches in cyber-physical systems, with special focus on cyber-physical systems where extensive online interactions may not be safe or feasible, but high-level knowledge can be useful in completing tasks in complex and adversarial environments with provable correctness guarantees. Specifically, the neuro-symbolic learning and control algorithms offer the following three key features. Firstly, they incorporate template-free inference of high-level knowledge (e.g., temporal logic formulas) from uncertain data into neuro-symbolic learning to enable data-efficient reinforcement learning with both offline training and online fine-tuning. Secondly, the approaches are capable of achieving scalable and resilient reinforcement learning in multi-agent adversarial environments where high-level knowledge can be inferred for expediting the agents' learning processes. Lastly, the algorithms provide provable guarantees on complex task specifications using neuro-symbolic learning-based adaptive control with unknown dynamics. The results of this research will be shared through a range of educational activities, including undergraduate and graduate courses, as well as research workshops. Additionally, outreach programs will be implemented to engage K-12 students and diverse groups in the scientific and engineering communities and broaden their participation.